Mathematical Aspects of String Duality

Abstract

Award: DMS-0405117
Principal Investigator: Kefeng Liu

By using localization methods we plan to intensively study
various conjectures from string theory, in particular those
arised from string duality. These include the most general mirror
principle for higher genus from functorial localization, the
Gopakumar-Vafa integrality conjecture, the relationship between
elliptic genus and Gromov-Witten invariants, both from
equivariant index theory. We have made significant progresses
towards our goals, for which the functorial localization formula
we discovered during our proof of the mirror principle is one of
the key techniques.

The interactions of string theory and mathematics has been one of
the very few most active and most exciting fields in mathematics
for the past twenty years. String duality has created many
amazingly beautiful mathematical conjectures. Our localization
methods have been very successful in proving them, inlcuding the
mirror conjecture, the Marino-Vafa conjecture, the Hori-Vafa
conjecture and the mathematical construction of the topological
vertex. Such interactions not only produce mathematical theories
and results, but also give strong evidences to the physical
theories.